Research Instrumentation for Image and Video Signal Processing

Equipment for constructing a computer-based facility capable of processing video sequences and 3D and 4D images including two Sparc 10 computers capable of 24 bit color display will be interfaced with Parallax video boards and other video equipment for control of frame-by-frame processing and recording shall be acquired. The resulting facility will make possible advanced education and research in video sequence processing, image sequence filtering, image sequence segmenting, visualization and analysis of heart motion, and 3D and 4D ultrasound images for medical diagnosis.